Investigations on a Novel Regulatory Molecule Mediating Interaction Between Environmental UVB and the Immune System

Ultraviolet (UV) irradiation in vivo causes a selective, systemic immunosuppression. The mechanism of this effect is unknown. Based on in vivo detailed wavelength analysis, Dr. De Fabo has hypothesized that this immunosuppression is initiated by the photoisomerization in skin of urocanic acid (UCA) to its cis form. Recent results from this laboratory and others have given support to this hypothesis. Dr. De Fabo proposes to test this hypothesis further, and has available a unique strain of mouse deficient in UCA. Preliminary data indicate that high pressure liquid chromatography (HPLC) is the most effective method of measuring trans and cis urocanic acid. Dr. De Fabo proposes to use HPLC to quantitate both isomers of UCA in extracts of mouse skin as a function of dose and wavelength of UV radiation to establish whether the formation of cis UCA in vivo shows dose- response and wavelength dependency characteristics comparable to those which produce UVB-induced immunosuppression. He will also determine the steady state levels of both isomers in vivo and try to determine whether urocanic acid exists in the lymphoid organs, and whether the cis isomer, as proposed by his hypothesis, can be detected in the lymphoid system. This award will provide HPLC equipment for use in this research. These pioneering studies may lead to the identification of the hitherto unknown immunoregulatory photoreceptor in mammalian skin.